Dissertation Research: A Nutritional Basis for Insular Gigantism in Small Mammalian Herbivores

Body size influences the physiology, behavior and community level interactions of organisms, but little is actually known about the factors controlling it. Small mammalian herbivores, isolated on islands and relieved of predation and competition pressures, offer an ideal situation for the study of selection on size. Island herbivores subsist on a food supply which is not only less diverse, but less abundant than in mainland habitats. Theory predicts that larger animals will have lower specific metabolic rates, yet their gut size increases approximately isometrically. Thus, selection on body size may result from the greater efficiency of larger animals in extracting energy from low-quality foods. A comparative approach will be used to test this hypothesis. Selection on size will be measured on two islands--one where gigantism is exhibited, one where it is not. Dietary composition and quality will be measured and analyzed, then related to biological traits associated with size.